Geophysical Monitoring of Groundwater-Lake Interactions

0509853
Toran
Groundwater-surface water interactions are an emerging area of research. There
is a critical need to determine water budgets, to track contaminants moving across the
interface (in either direction), and to understand the influence of groundwater discharge
on surface water habitats. But obstacles remain to making the necessary measurements.
Flux estimates made using mass balance calculations and models do not provide locations
of groundwater discharge and recharge. Point measurements made using seepage meters
or piezometers and sediment K have been plagued by lack of spatial coverage and
reproducibility problems.
This research will map the extent and continuity of groundwater recharge and
discharge zones at two well-documented sites, Lake Lacawac in Pennsylvania and Mirror
Lake in New Hampshire, using a newly-developed marine resistivity system.
Measurements collected by towing the electrodes behind the boat on a floating line can
be combined with GPS and bathymetry data during data inversion to produce nearly
continuous 2-D resistivity profiles. Resistivity responds to variation in porosity, ionic
strength of pore fluids, and clay content. In some cases, changes in pore fluid indicate
groundwater recharge from the lake (outseepage) or discharge to the lake (seepage).
Increase in porosity may indicate likely areas of discharge and increased clay content
may indicate areas of restricted groundwater-surface water interaction. Using the
resistivity system, measurements can be made over larger areas, and compared with the
geology beneath the lake. The geophysical interpretation of potential areas of
groundwater seepage or outseepage will tested by deploying an array of low cost manual
seepage meters, as well as new logging seepage meters that make use of an
electromagnetic flowmeter to detect changes in flow over time. The geophysical surveys
will advance knowledge of groundwater-lake interactions by providing better spatial
coverage, linkages between geologic features and seepage, and more temporal data in
order to examine system response to stresses (both storms and climate change).
This research is important to society because of the increasing pressures on
freshwater resources. Better understanding groundwater-surface water interactions will
improve prediction of water budgets and chemical transfer (i.e., contaminants).
Furthermore, seepage interfaces are often hot spots of biological activity and play an
important role in nutrient and carbon cycling. This study is designed for transfer to other
sites because it looks at the fundamental relationships between the geophysical signal(s)
and the observed hydrology.
The educational impact of this research occurs at multiple levels. Funds will be
provided for three masters students during their second year of study. In addition,
undergraduates will act as field assistants and take ownership of research sub-projects. To
further enhance their research experience, funding is included to permit undergraduate
students to attend a scientific conference and present their research. Temple often attracts
first-generation college students and has a 30% minority population; in the geology
department, there is a good gender balance among students. Thus, Temple is able to
reach under-represented groups in the sciences. In addition to university education, the
project will contribute educational materials on the importance of groundwater-lake
interaction for tours at the lakes studied.